Joint Meeting of USUCGER and ASFE, to be held in Arlington, TX, October

The purpose of this meeting is to foster cooperation, exchanges of ideas and findings, dissemination of experience amoung university and other researchers in the field of geotechnical engineering. The activity will provide a forum for discussion of educational matters by university professors and geotechnical engineering practicioners. The meeting will be held at arlington, Texas (near Dallas-FT. Worth Airport) to minimize travel costs, provide a venue with low probability of weather problems in late winter, and provide easy access to the Superconducting Supercollider site for a field trip.